SBIR Phase I: A Multi-Function Heat Exchanger for Control of Temperature, Moisture, and Air Quality

*** 96-60900 Martin The proposed system will be used to recover otherwise wasted energy by transferring heat and moisture between the fresh ventilation air stream entering a building and the outgoing exhaust ventilation air. While performing this function, it will suppress the transfer of pollutants which would otherwise ride piggy-back atop the transferred moisture and thereby undermine the quality of the ventilation air. Present heat and moisture exchangers permit free transfer of pollutants between the air streams, and are, therefore, unsuitable for air-qualitysensitive applications. The current research objective is to obtain a thin, microporous film or selective semi-permeable membrane that will serve as the basis for an innovative, non-polluting, air-to-air exchanger. The selected material must permit high rates of water vapor transfer between two streams of air, but must prevent the transfer of airborne gaseous pollutants. Promising materials will be both acquired and fabricated, and their permeabilities to water vapor and four representative pollutants will be determined using novel mass transfer experiments. This Small Business Innovation Research Phase I project will provide the technology base for a new type of energy recovery system. If successful, the research proposed here will significantly enlarge the opportunities for energy recovery in residential, commercial, and industrial ventilation applications. ***